Experimental High Energy Physics

This grant covers experimental Elementary Particle Physics research by a group at Adelphi University in collaboration with other NSF and DOE supported scientists. The group will make precision measurements of the parameters which specify the electroweak interactions within the Standard Model of interacting quarks and leptons. They will initiate research on neutrino interactions at Fermilab and participate in design studies for the SSC.